CAREER: Global Characteristics, Predictability, and Future Projections of Polar Subtropical Jet Superposition Events

Jet streams are narrow, rapidly moving bands of air that circle the earth near the outer edge of the tropics and close to the Arctic circle. On occasion, the separate polar and subtropical jet streams meander close together and merge into a single jet stream, producing a “jet superposition” with speeds up to 200mph. The high winds of jet superpositions can have severe impacts for aviation and cause extreme weather at the surface. Research supported here will examine the characteristics, predictability, and future projections of superpositions of the polar and subtropical jets of the Northern Hemisphere. To further workforce development, students will receive training in weather forecasting and hazard communication to improve their ability to work with stakeholders across both the public and private sectors. The project will also establish a first-of-its-kind cross-university forecasting organization for students attending several Colorado Front Range institutions.

The goals of this project are (1) to determine the role that jet superpositions play in producing extreme weather events on a global scale, (2) to identify factors that influence the predictability of jet superpositions and attendant extreme weather within weather forecast models, and (3) to project how jet superposition characteristics and their attendant extreme weather events may evolve in the future.